Study of Rapid Prototyping Facilities in the United States Manufacturing Research Community

This award is to explore the feasibility, areas of application, and strategies for implementing rapid prototyping facilities in U.S. manufacturing research communities. The work will be guided by a committee selected by the Manufacturing Studies Board, and will be comprised of experts in machined parts fabrication, advanced materials development and application, computer-integrated design and manufacturing, and small machine shop operations. Co-supporters of this effort are Defense Advanced Research Projects Agency (DARPA) and the National Bureau of Standards. The anticipated result of this work is a report describing possible strategies to implement the rapid prototyping facilities concept.